Implantable Pharmacologic Atrioverter: Postdoctoral Support for Academic/Industrial Collaboration

9707459 Arzbecher This research focuses on the development of an implantable drug delivery device for the treatment of atrial fibrillation by working with a postdoctoral fellow. The project will capitalize on the demonstrated leadership of the principal investigator in the field of automated, implantable drug delivery devices, as well as the experience of the postdoctoral fellow in intracardiac waveform analysis. The research will be conducted in the form of an academic-industrial collaboration, with the fellow based at Pharma Target, Inc. (PTI) in Minneapolis and working with the PI at the Illinois Institute of Technology. ***